Fast Voltage Pulses for the Enhancement and Control of Heat Transfer in Fluids

Recent experiments in Great Britain and Japan demonstrated s hundred-fold enhancement of convective and boiling heat transfer by the application of DC or low frequency electrical fields. Also, in the case of boiling heat transfer, the mean bubble detachment time was reduced and boiling hysteresis eliminated. However, the technique, as it had been developed, is applicable only to insulating fluids and cannot work for water, due to heating associated with the current. The proposed method attempts to overcome this difficulty by applying high field gradients in the form of narrow pulses. Electric heating would be reduced by using low duty cycles. The proposed research will study the pulsed concept and its effect on convective and boiling heat transfer in liquids.